U.S.-France Cooperative Research: Two or More Electron Processes in Ion Atom Collisions at Low, Intermediate and High Impact Velocities

This three-year award supports U.S.-France cooperative research in theoretical physics between research groups at Texas A & M University and the University of Bordeaux. The teams are led by John F. Reading (U.S.) and Robert E. Gayet (France). The main objective is to study fundamental processes of ion-atom collisions. These processes are of practical importance in Fusion and in studies of extinction rates in Biology. The investigators will focus on two electron problems in which two or more electrons actively change their states. The project benefits from the complementary expertise of the U.S. investigators in ion-atom processes and French expertise in analytical high energy methods.